Mathematical Sciences: The Classification of the Finite Simple Groups

This project represents an intensive collaborative research effort directed towards a comprehensive revision and simplification of the classification of the finite simple groups. A group is an algebraic structure with a single operation. It appears in many areas of mathematics, as well as physics and chemistry. The fundamental building blocks of finite groups are finite simple groups. One of the major results in mathematics of the past decade is the classification of finite simple groups, the proof of which would require 10,000 to 15,000 journal pages. The research supported is a joint effort to produce a self-contained, simplified and coherent treatment of this proof.